A Mathematical Logic for Physically Feasible Computation

Two years of support are being requested if at all possible. The reason for this is
because it is necessary to complete several key steps before submission as a regular
proposal. The first summer is to prepare papers for presentation and/or appearance in
conferences and/or journals. During the ensuing academic year, the intellectual content
of this potentially controversial material will be circulated for comment, both publicly in
talks and privately among colleagues. Based on the feedback received, the ideas put forth
will be modified and corrected. Only then does it make sense to use the following
summer to involve an undergraduate student in implementing the salient features of the
proposed work for both a greater depth of understanding and demonstration purposes.
By this point in time, that would mean there should be preliminary results
appearing in print, with supporting documentation on the web explaining this material.
In addition, more capable assistive computing technology will be available by then (to
help me overcome my hand disability), so that I might be able to more actively
participate in the implementation details of that work. When all of this is readily in place,
then it will be possible to submit a competitive regular proposal.